Mathematical Sciences: Seventh International Symposium on Approximation Theory

Approximation theory has been an important branch of mathematics for over 100 years; the mathematics involved ranges from the very abstract to the very applied. Several new research areas such as computer-aided geometric design and robotics depend heavily on tools from approximation theory. Some of the most currently active research areas in approximation theory are wavelets, multivariate splines, multivariate data fitting, orthogonal polynomials, rational approximation, abstract approximation, modern moduli of smoothness, and computer-aided geometric design. This project will support the Seventh International Symposium on Approximation Theory, to be held January 3-7, 1992 at the University of Texas at Austin. The conference will include 9 one-hour invited survey lectures and over 100 sessions for contributed papers. A volume of conference proceedings is planned.